Experimental Constraints on Volatile Cycling in Subduction Zones

9506494 Holloway This research will provide data on the solubility of CO2 and H2O in andesitic composition melts and on the stability of hydrous minerals in the three prominent rock types in subducting slabs - metasediments, metabasalts, and hydrated peridotites. The experiments to be conducted will use a combination of high pressure systems covering the range 20 Mpa to 20 Gpa. The solubility experiments span the temperature range 1100o to 1450o. The hydrous mineral stability experiments will cover the range believed appropriate for subduction slab materials, generally 550o to 1200oC. Where possible, experimental results will be analyzed in context of available theoretical models and the results applied to interpretation of subduction zone processes.